Localized Bases and Band-Limited Methods for Image Modeling and Analysis

The objective of this project is to develop a mathematical framework
for the modeling and analysis of images in two and three dimensions
based on certain basis functions. The foundation of this framework is
a class of band-limited functions (that is, functions that have
compactly supported Fourier transforms) which are also locally
concentrated in the spatial domain. Although images are seldom truly
band-limited, they are generally considered piecewise smooth, and are
frequently modeled so locally (or piecewisely) by smooth functions
such as polynomials and trigonometric functions. Since common images
contain many features such as edges and textures that are usually
locally compact in the Fourier domain and simultaneously limited in
the spatial (or image) domain, functions of this type are an ideal
choice of basis for image representations. The PI will develop
numerical methods for the construction of the band-limited basis
functions, as well as efficient methods for the analysis and synthesis
of images in such bases. Furthermore, algorithms for targeted image
analysis problems such as restoration and texture analysis will be
implemented. The PI will also investigate the adaptive construction
of optimal (or near-optimal) representations of images, and test the
effectiveness of such techniques on a realistic collection of 2D and
3D images.

Potential applications of the mathematical theory and image analysis
algorithms developed in this project include satellite imagery, remote
sensing, and image-based diagnoses in fields such as medicine, and
material science. For example, in satellite imagery where data are
acquired with limited resolution, one central task is to magnify or
interpolate the images so that the faintest details embedded can be
reliably enhanced. Since the methods proposed in this project provide
highly adaptive, localized image representation mechanisms, and
therefore are likely to produce advanced image enhancement techniques
with fewer artifacts than traditional methods, information may be more
readily and reliably extracted. Research proposed in this project
also comprises methods and techniques that have been studied in
several disciplines: the theory of band-limited functions in
mathematics, fast algorithms in numerical computation, edge detection
and texture analysis in computer vision. Thus, the project affords
opportunities for cross-pollination between researchers and students
in mathematics, computer science, electrical engineering and
statistics, and will particular benefit the participating students by
providing a fertile ground for them to make connections between
mathematics and engineering.